The Activation Approach: A Comprehensive Method and Toolkit for Evaluating the Impact of Science Learning Experiences Across Environments

The project develops evaluation tools around the concept of "science activation" a construct that includes: fascination with science, valuing science, perceived autonomy, competency belief, and engagement in scientific sensemaking. This enables evaluation of a broader range of outcomes beyond achievement test scores. The project will build on research activities and turn those findings into measures, surveys, and protocols that can be used in both formal and informal settings with 11-15-year old youth.

The instruments and toolkit developed through the project will help other organizations to collect, analyze and interpret similar data.